The Survivorship of Newly Formed Social Groups in Wild Primates

The formation of new groups is a relatively rare event in non-human primates. When it does occur, it may do so either by the division or union pre-existing populations. Once having done so the likely fate of the new groups is unknown as is the survivorship and reproductive success of its members relative to members of established groups. Yet, these are important parameters for understanding the evolution of populations. This research will focus on a long-studied, large population of Macaca sinica on the island of Sri Lanka. The population of 650 animals is subdivided into about 25 groups living under natural conditions. All individual animals in the population can be identified. Of the groups, 7 have recently formed through fission and 3 through fusion, thus providing a prime location for determining the fecundity, survivorship and reproductive success of females in stable groups as well as groups formed through both fusion and fission. Compared to established groups, new ones may face many ecological and social challenges, in particular those which involve competition for limited resources and mates.